Problems in Complex Geometry

A smooth real-valued function f on a complex manifold X
is said to be strongly q-convex if its Levi form L(f)
has at most q-1 nonpositive eigenvalues at each point.
The manifold X is called strongly q-convex if X admits
an exhaustion function which is strongly q-convex on the
complement of some compact subset K (X is q-complete
if one may take K to be empty). There are also well-known
notions of q-convexity for complex spaces. If g is a Hermitian
metric on X, then f is of class SP(g,q) if the trace of
the restriction of L(f) to any complex vector subspace of
dimension q in the tangent space at any point in X
is positive. Such functions are strongly q-convex. The principal
investigator and Mohan Ramachandran have applied such functions to
obtain results concerning the Levi problem and the structure of
complete Kaehler manifolds. They have also developed and applied
analogous classes on complex spaces. The principal investigator
plans to apply such functions to extend some results for Kaehler
manifolds to singular Kaehler spaces and to study q-convexity
properties of coverings; in particular, covering spaces of
(quasi)projective varieties. Some or all of the proposed work
will probably involve collaboration with Michael Fraboni, Cezar
Joita, or Mohan Ramachandran.

Complex spaces (in particular, Stein spaces and projective
varieties), are the fundamental objects of study in several
complex variables and algebraic geometry. The notion of
q-convexity is one of the many useful generalizations
of geometric convexity (for example, a region in the plane is
geometrically convex if any line segment connecting two points
in the region lies entirely within the region). The convexity
properties of a complex space (for example, a covering space
of a projective variety) are intimately connected with
the space's holomorphic function theory and geometry.
Holomorphic functions on complex spaces (for example, on regions
in the complex number plane) are the natural analogues of
differentiable functions on the real number line from differential
calculus. Thus the study of convexity properties is
an essential element in the study of complex spaces.
Moreover, notions of convexity (like those of symmetry) appear in
almost every field of mathematics, science, and engineering.
Hence the study of convexity properties of complex spaces
provides further evidence of the importance of convexity.